Autostereoscopic Visualization and Geometric Computing for Biological Macromolecules

NSF 0429753 Autostereoscopic Visualization and Geometric Computing for
Biological Macromolecules

The planned research seeks to develop tools and techniques for
visualization and geometric reasoning for large proteomics data. The
proposed research has three main components -- implicit-function-based
representations for proteins, faster computation of protein
electrostatics, and real-time auto-stereoscopic visualization. The
research will develop a unified framework of implicit functions that
can compactly and efficiently represent non-bonded protein properties
including protein electrostatics and accessibility. By tightly coupling
these properties, implicit-function-based representations will likely
result in synergistically favorable crossovers in the solutions to these
problems. Further, providing adaptive, progressive, and hierarchical
representations for implicit functions will allow them to be used in
multiresolution schemes for storage, transmission, and computational
steering. Protein electrostatic interactions are of central importance for
many biological processes. Autostereoscopic visualization of proteins
and their properties is important in understanding the 3D structure of
proteins. The proposed research will develop new methods for rendering
implicit surfaces and volumes using the recent advances in graphics
hardware as well as adapt efficient methods for autostereoscopic displays
with personalization.